Faculty Enhancement in Polymer Chemistry

9353955 Cassidy This project is designed to enhance the ability of experienced faculty members to teach polymer chemistry, an area which has become an integral factor in electronics, space exploration and medical applications. The two-year project includes (1) a two-week intensive residential seminar at Southwest Texas State for twenty faculty members selected from colleges throughout central Texas, (2) a two-semester internship at Southwest Texas State for four of those faculty members, selected on the basis of interest and aptitude, (3) trips to national and regional meetings for the Project Director and as many as fourteen participants, and (4) an ongoing advisory group of thirteen regional colleges and SWT staff, for continued support. ***